Trends in Nonlocal Analysis and Geometry

This award provides funding for US participation in the conference "Local and Nonlocal Trends in Analysis and Geometry" that will be held University of Pittsburgh on October 10-12, 2019.

The conference focuses on recent developments in Analysis, especially in the fields of nonlocal partial differential equations and geometric analysis. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, and researchers not funded by NSF, an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: http://www.mathematics.pitt.edu/events/local-and-nonlocal-trends-analysis-and-geometry